Developing a Basic Research Program for Digital Government

EIA-0203085
Fountain,Jane
Harvard University

Developing a Basic Research Program for Digital Government

This workshop grant is intended to develop a long-term, basic research agenda for Digital Government research in the areas of social and political sciences. Attendees will include Computer/Information scientists, social scientists, and government executives. The workshop will be developed and managed by Harvard's John F. Kennedy School of government.